Research Initiation Award: An On-line Dynamic Security Indexfor Power System Contingency Selection

This is a Research Initiation Award dealing with implementation of a power system dynamic security index. The index is the mean first passage time (MFPT) required for a system to reach dynamic security limits when affected by a contingency. The project will include a study of the relationship between MFPT and the contingency selection problem.